ITR: Energy and Thermal Management for Data Centers

Trends in Internet infrastructure drive a shift toward service-based
computing. Internet-based service providers are adding new data center
capacity for a variety of services including Web hosting, application
services, outsourced storage, electronic markets, and other network
services. In these large scale and rapidly evolving data centers, one of
the most important challenges is the energy and thermal problem. Data
centers typically have very high power requirement, which significantly
increases the difficulty of deploying and expanding a data center due to
the need for a large power generation infrastructure. Moreover, high
power consumption can result in high electricity bills and negative
environmental implications. Another consequence of power consumption is
heat dissipation. A recent report shows that heat density per product
footprint in a data center increases around 28% per year, increasing the
cooling costs for air conditioning. If the temperature is not cooled
down effectively, excessive heat can cause malfunctions of many devices
and even shutdown of the entire data center.

The proposed research addresses the above problem. More specifically, we
investigate innovative energy and thermal management schemes for data
centers with an emphasis on back-end storage, which is one of the
biggest energy consumers in data centers. To conserve energy and reduce
heat dissipation, we explore energy and thermal aware storage
organizations and investigate cross-layer and cross-node,
energy-efficient, thermally safe and performance-effective management
schemes for data centers. Moreover, we revisit and redesign existing
highly-performance-optimized control policies to be energy and thermal
aware.